U.S.-Mexico Collaborative Research: Peasant Economy and Household Units: Dynamics Structure and Reproduction in theValley of Oaxaca

This award will support Professor Martha Rees of Baylor University in a research collaboration with Professor Ana Paula de Teresa of the Universidad Autonoma Metropolitana de Iztapalapa, Mexico. The investigators intend to address the issue of how do peasant households reproduce themselves, not only biologically, but economically and socially as well, in the fact of adverse conditions posed by the expansion of the market. Data collected in the Central Valley of Oaxaca, Mexico will permit a diachronic and a synchronic analysis of the effect of external factors (e.g., market) on internal household structure and organization--the reverse of Chayanov's model in which internal needs determine peasant production. Data include genealogies and work and reproductive histories to be summed in matrices by chronological year and household age. Results will show changes in consumer/ worker ratio, division of labor, expulsion or retention of household members (via marriage or migration), changing productive and subsistence activities, and demographic behavior. The collaborators have experience with the field training of graduate and undergraduate students in Anthropology. Such training will be an integral part of this research as much of the data collecting and analysis will be performed by graduate and undergraduate students in Mexico and the United States.